X-Band Radar Data Processing and Support for the Academic Research Fleet

This project enhances shared-use ocean observing capabilities supporting scientific operations aboard vessels of the U.S. Academic Research Fleet. The project improves the collection, management, and accessibility of oceanographic observations used to study ocean surface conditions, waves, currents, sea ice dynamics, and air-sea interactions. By expanding access to standardized observational data products, the project strengthens shared research infrastructure while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, maritime operations, and coastal resilience.

The project provides technical services necessary to operate and maintain the Wave Acquisition Stereo System (WAMOS) and associated X-band radar data processing infrastructure aboard currently supported research vessels and planned Regional Class Research Vessel installations. Activities include system monitoring, calibration, quality assurance, data management, product generation, user support, and integration with Rolling Deck to Repository (R2R) and other community data systems. These investments improve the reliability, accessibility, and long-term usability of radar-derived observations while supporting continued maturation of ocean surface monitoring capabilities within the Academic Research Fleet.